Software Capitalization: A Research Facility for Numerical Computation and Software Engineering.

The Computer Science Department of the University of Colorado will continue to develop the infrastructure created with their prior CER award by upgrading workstations, adding X terminals, and acquiring new shared-memory and distributed memory multiprocessors. This will enable researchers in the department to continue their significant investigations in the areas of scientific computation, connectionist systems, and software systems. The research in scientific computation has three components: language and tools, numerical algorithms, and applications, which all have a heavy emphasis on parallel computation. Parallel computation is also emphasized by the connectionist researchers, who are making interesting applications of connectionism and are collaborating with the scientific computation researchers in developing sophisticated optimization algorithms. The software systems research has a broad scope, including projects in user interfaces, databases, programming environments, distributed systems, and languages and semantics. The systems researchers provide a basic source of systems expertise and tools for the other research areas, as well as engaging in fundamental systems investigations.